Dissertation Research: Archaeological Investigation of LateStone Age Sites in the Mema Region of Mali

Under the guidance of Dr. Susan McIntosh, Ms. Helen Haskell will conduct archaeological survey and excavation in the Mema or "Dead Delta" region of Mali. The results of this work will form the basis for her doctoral dissertation. The Mema, as geomorphological data indicates, was once a well watered region which coincided with the inland delta of the Niger River. A change in the river's course has turned the region to desert. The small amount of archaeological research which has been done in the region indicates that it contains archaeological sites which probably span several millennia. They include at least two which document the transition from a pure hunting and gathering existence to one which incorporated livestock and domesticated plants. The goal of Ms. Haskell's research is to shed light on this transition period. Guiding herself with aerial photographs, Ms. Haskell will conduct a vehicle survey of the region, noting both ancient landforms and scatters of archaeological materials. In conjunction, these data will provide information on prehistoric landscape use. She will also conduct test excavations at two sites and collect pottery, stone tools, and other cultural remains as well as floral and faunal materials. This project is important for several reasons. First, it will fill in what is almost a complete archaeological blank. It will provide information on how cultures at a very simple level of technology adapted to a rigorous Saharan environment and, hopefully, shed light on the introduction of agriculture and pastoralism to sub-Saharan Africa. Finally, it will aid in the training of an extremely promising young scientist.